Conference: Geometry and Dynamics of Discrete Actions in Cuernevaca

The conference “Geometry and Dynamics of Discrete Actions” will be held at the Mathematics Institute of the National University of Mexico in Cuernavaca, during the week of June 15–20, 2026. This event is an official satellite conference of the International Congress of Mathematicians (ICM), the premier international mathematics gathering, hosted in the United States for the first time in 40 years. The study of discrete group actions remains at the heart of several key areas of modern mathematics and its applications, so participation in events of this caliber is vital for researchers to remain at the forefront of research.

Funds provided by this grant will enable U.S.-based early career mathematicians to interact with senior experts in the field and learn about new techniques and results in this rapidly evolving area of mathematics. It is to be expected that this will increase interaction between the US, European and Mexican mathematical communities, and lead to new international collaborations. More information on the conference can be found at its official webpage: https://www.matcuer.unam.mx/SatelliteICM2026/